Modeling, Analysis, Computation and Experiments of Two-Component Bose-Einstein Condensates

Carretero
DMS-0806762

The goal of the project is to shed light on two-component
Bose-Einstein Condensates (BECs) and how they differ from their
single-component counterparts. The investigator and his
colleagues aim to redefine the way in which modeling and analysis
are developed in such systems by introducing some fundamental
physical processes that were not included in presently employed
models. More specifically, the team of researchers plans to:
(a) develop a new model for two-component BECs, by augmenting
existing models to account for processes such as inter-atomic
interaction losses and higher-order magnetic (Zeeman) effects;
(b) benchmark the model, by testing it in a variety of
situations where the total number of atoms or ratio of atoms
changes between the two components and comparing it against the
newly developed partial differential equation model;
(c) analyze the model mathematically by means of Galerkin
projections and Lyapunov-Schmidt reductions to study finite
dimensional approximations of the dynamics, whereby the existence
and stability of solutions are studied and control strategies are
employed to stabilize potentially unstable solution
configurations;
(d) produce a computational platform that enables the study of
existence, stability and nonlinear dynamics of multi-component,
high-dimensional variants of the nonlinear Schrodinger equations
that are the key mathematical ingredient in the modeling of such
atomic systems. In the process, spatially/temporally adaptive
and/or parallel integrators are produced for time-stepping
purposes and iterative methods are developed in order to analyze
the linear stability problem around steady state solutions.

This project presents a route to systematically quantify the
quantum dynamics at the lowest temperatures that arise in the
Universe, namely in the recently created new form of matter
represented by Bose-Einstein condensates (whose formation was
awarded with the 2001 Nobel prize in Physics and whose
properties, such as superfluidity, were intimately connected to
the Nobel prize in Physics in 2003). The investigator and his
colleagues form an interdisciplinary team to directly monitor
this state of matter in the laboratory, to model the system at
the physical level, to explore the resulting features at the
mathematical level, and finally to fully visualize the
three-dimensional dynamics of such complex systems. A continuous
feedback between all the above stages is intended to ascertain
not only a qualitative but also a quantitative understanding of
such atomic physics systems, such as gases of rubidium, sodium
and other alkali vapors. The multi-species systems under study
present a wealth of opportunities for future applications,
ranging from the controllable formation of ultracold microscopic
patterns (in a form of "quantum lithography") to the realization
of quantum gates and switches, that, in turn, aim towards the
longer term goal of enabling quantum computation.